MRI: Acquisition of a Preparative HPLC system for Undergraduate Research Training in Chemistry and Biology

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Colby College will acquire a preparative high performance liquid chromatography (HPLC) system. This equipment will enhance research in a number of areas including a) purification of precursors used to synthesize carbenes; b) synthesis of natural products; c) synthesis of aza- and oxocalixarene macrocycles and diheterocalixarene cage compounds; c) studies of the interactions of small molecules with DNA; d) investigations on the covalent interactions between duplex DNA and small transition metal compounds; and e) analysis of frog skin secretions.

High performance liquid chromatography (HPLC) is an extremely powerful technique used for the separation and analysis of complex mixtures. The results from these studies will have an impact in a number of areas including synthetic chemistry and biochemistry.